CAREER: Characterizing drivers, patterns, and probability of prolonged coastal flood hazards across space and time

Coastal flooding is one of the most pressing hazards facing the United States. While the magnitude of floods at their peak has traditionally been the primary focus of risk assessment, there is evidence that the duration of flooding, or how long floodwaters persist above an important threshold, can be equally or more consequential. Thus, the goal of this project is to investigate the spatiotemporal patterns of flood duration along U.S. coastlines. The research integrates observational analyses with simple models to characterize flood duration and to determine how duration is influenced by interacting oceanographic processes such as tides, storm surge, and sea level anomalies. The outcomes of this project will help improve flood risk assessment, inform infrastructure design, and guide emergency planning. In addition, the project includes several education activities, including training of graduate and undergraduate students and creating lesson plans for middle schools to increase awareness and understanding of coastal hazard science.

For this project, high frequency observations from tide gauges around the U.S. will be leveraged to determine the spatiotemporal variability and drivers of flood duration along U.S. coastlines. The focus will be on gauges that have at least 30 years of data to represent extremes adequately. The research plan consists of several aims, each containing several tasks. The aims are 1) to separate storm surge from observed still water levels, 2) to characterize the role of contributing factors to flood duration, 3) to explore the spatiotemporal variability in flood duration, and 4) to predict the probability of flood event duration from a large set of stochastic simulations of contributing flood processes. Factors that are expected to contribute to flood duration include tides, storm surge, sea level anomalies, and climate patterns such as El Ninon Southern Oscillation. Advanced stochastic simulations will be integrated into the observational analysis to determine how the persistence of flooding is influenced by these factors.